Freshman Engineering Design and Computing: A Unified Approach

This project focuses on a novel merger of the fundamentals of computation and engineering design at the introductory level in undergraduate engineering education. Such a merger replaces the teaching of rapidly obsolescent technical skills (programming and drafting/CAD) with a rigorous, fundamental indoctrination in an accepted, sound, engineering design methodology. The controlled introduction of the fundamentals of computation and software design indoctrinates and illuminates the principles of good engineering design.